Mathematical Sciences: Singular Pertubation Methods for Nonlinear Dynamical Systems and Waves

The goal of this research is to understand the behavior of solutions of nonlinear partial differential equations by using asymptotic methods of singular perturbation type. Two kinds of problems will be investigated: the slow crossing of a separatrix due to a weak dissipative perturbation and the development of a method of averaging for slowly varying waves influenced by weak perturbations. Such equations arise in a host of areas where the behavior of nonlinear waves is the primary physical process. Many phenomena in nature involve the action of weakly nonlinear waves. Examples include the motion of the tides as well as the daily bodily rhythms of waking and sleeping. Such complex systems can be approximated sometimes by systems of partial differential equations that contain one or more small parameters. In this research the principal investigator will use the smallness of these parameters to construct approximate solutions of the equations by replacing the complicated equations with simpler ones. The simpler equations still retain the essential physics of the complicated ones, but they are much easier to study.